CAREER: Core-Shell Inorganic-Organic Hybrid Nanoparticles--Synthesis and Applications

This award entails a comprehensive program for the synthesis of novel core-shell hybrid nanoparticle materials (HNM) containing (HNM) a polymer shell and an inorganic core and the development of two materials applications. The polymer shell of the nanoparticles can be created with exquisite control in functionalities, composition, thickness, and uniformity using Ring-Opening Metathesis Polymerization (ROMP) chemistry. The inorganic core can be made from either metals, semiconductors, or insulators, and can be either magnetic or nonmagnetic. The resulting nanoparticle composites can then be formed to possess the best combination of physical properties that can be utilized in a variety of diagnostic, deliveries, and sensing applications.
%%%
The proposed research will allow the Northwestern researchers to synthesize core-shell hybrid nanoparticles materials and elucidate their fundamental behaviors. This knowledge can then be used to tailor these materials for device-based applications in electronic- and health-related fields. Examples of potential applications include: thin-film radiation detectors, ultrasensitive redox-amplified DNA detection, and targeted delivery of polymer-based anticancer drugs. A comprehensive approach to education, which includes not only graduated and undergraduate, but also K-12 and community outreach, is an integral part of this award.